Inaugural Conference of Generative Approaches to Language Acquisition - North America

The National Science Foundation will support the inaugural conference of
Generative Approaches to Language Acquisition - North America (GALANA), to
be convened at the University of Hawai`i at Manoa on 17-20 December
2004. The GALANA meeting is conceived as the North-American sister to the
Europe-based conference, Generative Approaches to Language Acquisition
(GALA), which has been held biennially since its inception in 1993. GALANA
and GALA, both roving conferences, will henceforth alternate from year to year.

GALANA will complement other existing broad-based and specialized language
acquisition conferences, and it will provide an outlet for the growing body
of generative acquisition research. A major aim of GALANA is to bring
together generative researchers in all subfields of language acquisition,
including first language acquisition, second language acquisition,
bilingual language acquisition, creole and pidgin studies, and disordered
language development. Notable features of the conference designed to
entice and excite wide participation include: (i) invited presentations by
distinguished scholars from both the U.S. and abroad, more specifically,
two plenary addresses and one half-day tutorial; (ii) two special thematic
sessions, one on the acquisition of Mood/Aspect and the other on child
second language acquisition; (iii) three poster sessions, one of them
reserved for graduate students.

GALANA's broader impact occurs at several levels: First, we are initiating
a conference that will benefit researchers for many years to come. Second,
GALANA will promote the participation of beginning researchers, including
those from under-represented minorities, by offering merit-based travel
fellowships to approximately 15 graduate students. In addition, the
conference will have a major impact on the infrastructure of linguistics
scholarship at the University of Hawai`i by fostering cross-over between
the two co-sponsoring departments (Linguistics; Second Language Studies),
providing undergraduate and graduate students in both departments with
numerous intellectual and professional opportunities, and spurring Pacific
Islanders' interest in the study of the acquisition of their own
languages. Finally, as a roving conference, GALANA will encourage
collaboration among centers of generative studies in the U.S., thus
strengthening the infrastructure of generative acquisition research in
linguistics.